Mathematical Sciences: Algebraic Transformation Groups

9401780 Knop The main goal of this project is to generalize the theory of symmetric spaces to other spaces where one makes only one assumption on the symmetry group: It should be a semisimple Lie group. Under this condition one is able to define the notion of a flat and of a little Weyl group. There exist three different constructions of the Weyl group. The first is by looking at the boundary of the space. For spherical varieties, there is a canonical construction of a compactification and one part of the project is to prove that it has no singularities. The second construction is accomplished by looking at the action of a certain subgroup of the symmetric group. The principal investigator will find a way to reconstruct all other data needed to describe all compactifications of the space. Finally, there is a construction accomplished by looking at the moment map on the cotangent bundle of the space. A major problem of the project is to obtain a better understanding of the moment map. Many different algebraic objects can be represented as algebraic sets of transformations of other algebraic objects. Through these representations their structure can be determined. This project is concerned with the representation theory of infinite dimensional Lie algebras. The study of these algebras has applications throughout mathematics and mathematical physics. ***